RCMS: Research Careers for Minority Scholars in Materials Fields

Polytechnic University is an urban university located in downtown Brooklyn. Polytechnic will identify and recruit minority women students from high school and from two year college programs for its undergraduate programs in materials science research. Precollege students will participate in a summer research program and enroll in a summer math preview/review course prior to beginning their first semester as Polytechnic undergraduates. Selected students enrolled in two year programs in the physical sciences at nearby schools will also participate in the summer programs. Students who would benefit from a "preresearch experience" will take the Spring Forward Saturday program prior to undertaking summer research. Students in two year programs will be advised and counseled to facilitate their transfer to Polytechnic as upper level undergraduates. All precollege and undergraduate participants will receive advisement about academic coursework that prepares them for enter into strong graduate programs. Undergraduate minority and women peer counselor/tutors will work with students in small groups to enhance learning. Students will receive mentoring and counseling from faculty, graduate students and undergraduate peers the research laboratory environment. Students will attend seminars, participate in visits to graduate programs and to industry, and prepare oral and written reports based on research. Upper level research students will be encouraged to give presentations at meetings of professional societies. Students will receive assistance in preparing graduate school applications.